Cirrus Cloud Studies Using the NCAR Sabreliner as Part of Phase II FIRE

This research is focussed on an aircraft experiment to be carried out as part of the FIRE phase II intensive field observational program that is planned for the November/December 1991 time frame in Kansas. The primary platform for the proposed research is the NCAR Sabreliner aircraft equipped with radiation, microphysics, air motion and flight level meteorological sensors. New radiation instruments will be installed on the Sabreliner both to obtain spectrally detailed information about solar radiation and more accurate broadband flux measurements. The ultimate goal of this research is to incorporate new observational results into numerical models of cirrus cloud that vary in scale of interest and complexity with the ultimate purpose of testing parameterizations of cirrus for use in large scale climate models. This research is important because it addresses questions relevant to issues of global climate change.